Mathematical Sciences: Representations of Direct Limit Groups

This research planning grant supports the work of Dr. Natarajan to work in the representation theory of direct limits of the classical groups. In particular those that correspond to finite dimensional classical domains over complex vector spaces. As the mathematical vehicle for exploiting the symmetries inherent in a system, the representation theory of the classical groups has had a profound impact upon mathematics itself, particularly in analysis and number theory, and upon theoretical physics, especially quantum mechanics and elementary particle physics.